U.S.-Argentina Cooperative Research on Higher Order Perturbation for Black Hole Collisions

9512894 Pullin This U.S.-Argentina collaborative research between Jorge Pullin of Penn State University and Reinaldo Gleiser of Universidad Nacional de Cordoba in Argentina addresses the use of higher order perturbation theory in the analysis of the collision of two black holes. They will work with Richard Price, known for his work on higher order perturbation theory. The general problem of the coalescence of binary star systems and black hole binaries for prediction of gravitational wave forms is the subject of an NSF Grand Challenge. Pullin is a young PhD who has published several works on black holes and gravitation. Most work to date in this area has depended on supercomputer simulations which are hard to check theoretically. The proposed work, although approximate, can serve as a check on other methods. It extends earlier first order calculations to obtain the accuracy needed for prediction. ***